Biofilm Development by Pseudomonas Fluorescens

Intellectual Merit.

There has been an explosion in research directed at understanding how microbes form surface-associated communities known as biofilms. While pseudomonads have received a great deal of attention as model organisms for studying biofilm development, most efforts have focused on the medically important Pseudomonas aeruginosa. However, soil pseudomonads such as P. fluorescens and P. putida play important roles in a broad range of environmental processes and recent studies from Dr. O'Toole's and other laboratories suggest that the biofilm formation pathways used by P. fluorescens may differ markedly from P. aeruginosa, making the study of these soil organisms of great relevance in their own right. Dr. O'Toole's preliminary data show that:
- Inorganic phosphate (Pi) availability is a key signal regulating biofilm formation by P. fluorescens - specifically, Pi-limitation inhibits biofilm formation via the Pst-PhoB system.
- Induction of the Pi-regulated rapA, which codes for a c-di-GMP phosphodiesterase, is required for the lack of biofilm formation in Low Pi.
- The Pst-PhoB system, via RapA, regulates biofilm formation by impacting the secretion or localization of LapA, an adhesin that Dr. O'Toole's laboratory has shown previously is essential for biofilm formation.
- LapD participates in biofilm formation via modulating secretion and/or localization of the LapA adhesin, by regulating c-di-GMP levels or binding this signal.
- The bidA gene, which is co-transcribed with lapD, negatively impacts biofilm formation possibly via the modification of LapA.

This project will address the following Specific Aims:
Aim 1. To test the hypothesis that Pi-regulated RapA represses biofilm formation by modulating the production, secretion and/or localization of LapA via RapA's ability to modulate c-di-GMP levels.
Aim 2. To test the hypothesis that LapD promotes biofilm formation by modulating secretion and/or localization of LapA via LapD's ability to modulate c-di-GMP levels or bind this signal.
Aim 3. To test the hypothesis that BidA modulates secretion and/or localization of LapA by impacting the modification of LapA.

Broader Impacts.

- Research impact: Fluorescent pseudomonads represent an important group of soil microbes that play roles in bioremediation, soil ecology, plant pathogenesis and biological control. Many of these roles are performed by biofilms of these microbes. The first goal of these studies is to better understand the molecular mechanisms by which a key environmental signal (Pi availability) regulates biofilm formation. In environmental settings, Pi is often adsorbed to surfaces or is sequestered in a variety of minerals. The regulation of biofilm formation by Pi may reflect that the reservoir of Pi for this microbe is found associated with surfaces, and thus biofilm formation may be a key component of the strategies used by P. fluorescens to obtain this important nutrient. The second goal of this study is to understand how the signaling molecule c-di-GMP controls biofilm formation by studying a Pi-regulated enzyme involved in c-di-GMP metabolism (RapA) and a putative c-di-GMP-binding protein (LapD), and exploring how a nucleotide signal whose level is potentially impacted by ~40 proteins modulates a specific effect on biofilm formation. A better understanding of the signals that regulate biofilm formation may help us to better modulate biofilm formation in a controlled fashion in this important bioremediation and biological control species.

- Educational impact: Previous funding has supported the training of 3 graduate students (2 current and one former student) and 10 undergraduates in Dr. O'Toole's laboratory (including 4 underrepresented minority students) during the past 5 years. The undergraduate research opportunities resulted in 2 peer-reviewed publications and 1 review article (an additional article is in preparation). Two additional educational activities are continuing: Dr. O'Toole continues to offer a course he developed as part of a prior CAREER award; and he continues to serve as the Director of an REU-SITE that he established at Dartmouth College. Over the past 5 years, the REU site has hosted 31 undergraduates; 21 of these students come from under-represented groups and the remainder from non-research institutions.